Mathematical Sciences Research Equipment

This is a grant under the Scientific Computing Research Equipment for the Mathematical Sciences program of the Division of Mathematical Sciences. It is for the purchase of special purpose equipment dedicated to the support of research in the mathematical sciences. In general, this equipment is required by several research projects, and would be difficult to justify for one project alone. Support from the National Science Foundation is coupled with discounts and contributions from manufacturers, and with substantial cost-sharing from the institution submitting the proposal. This is an instance of university, industrial, and government cooperation in the support of basic research in the mathematical sciences. The equipment will be used to support research in the following projects: State Estimation Problems in Electrical Power Systems; Numerical Computations of Global Periodic Solutions of Navier-Stokes Equations; Research in Mathematical Biology and Reaction-diffusion Equations; and Nonlinear Time Series.